Solid-State Cavity Quantum Electrodynamics

"This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)."

Objective:
The objective of the proposed research is to develop solid-state devices
for achieving controlled and efficient coupling between single photons and
single electrons confined in microstructures.

Intellectual Merit:
The intellectual merit is the ability to efficiently transfer information
between the quantum state of an electron spin and the polarization state
of a photon. This allows for unprecedented studies of electron spin
dynamics using quantum optical measurements. The research team has the
required material-growth, device-fabrication, and quantum-optics skills
and resources to perform this challenging project. To complement the
research, the team will collaborate with the Allosphere, which is a
virtual reality research center at UCSB, and with local high schools (with
a predominantly Hispanic student population) to provide high-school
students with an unforgettable science experience.

Broader Impacts:
The broader impacts of this effort are the direct relevance to the micro
optoelectronics industry (the research is based on cutting-edge
technologies and materials from that industry), the importance for
fundamental studies in confined electron and hole properties in
semiconductor, and the outstanding training of PhD students in Engineering
and Physics. Furthermore the ability to establish a one-to-one relation
between an electron, the ultimate representation of a locally stored bit
of information, and a photon, the ultimate representation of a flying
bit of information, would potentially have a tremendous impact on
ultra-low-energy consuming classical and quantum communication and
computation systems. Finally, high-school students will be inspired to
follow a career in science.